CISE Research Instrumentation: Real-time, Multimedia and High Performance Computing in Distributed Systems

CDA-9529403 Chen, Marina Bestrides, Azer Heddaya, Abdelsalam Boston University Real-Time, Multimedia and High Performance Computing in Distributed Systems The requested instrumentation is to enhance and support a rapidly growing research group in areas of high performance computing and communication, digital multimedia, and real-time systems. The instrumentation consists of a 12 x 12 ATM switch connecting nodes that serve as compute engines, files servers, and video clients which provides high bandwidth access to the university's supercomputing facility. Five research projects will directly benefit from the requested instrumentation: 1. Parallel compilers, 2. Performance prediction of high-bandwidth networking environments connecting a heterogeneous set of computers and supercomputers, 3. Efficient multi-threaded shared memory parallel computing on distributed systems, 4. Information dispersal and retrieval protocols to provide for real-time, fault-tolerant comunication, and 5. 3D extension on deformable shape modeling for content-based retrieval for video and image databases. The advancement of these projects depends on emerging technology of high-bandwidth networking environments connecting a heterogeneous set of computers and supercomputers, and the availability of a network that delivers a guaranteed bandwidth and real-time graphics and video I/O capabilities.